Collaborative Research: Understanding Ion Transport in Amorphous Superionic Conductors via Integrated Lattice Dynamics, Machine Learning, and Atomistic Simulations

NON-TECHNICAL SUMMARY

Next-generation solid-state batteries require advanced materials that conduct ions rapidly, maintain stable interfaces with electrodes while simultaneously enhancing safety toward an ultimate goal of replacing the flammable liquid electrolyte used in conventional batteries. To this end, research in the past decades has focused on crystalline materials with well-ordered atomic arrangements. However, these crystalline solid electrolytes suffer from grain boundary instability, poor interfacial contact, and limited design flexibility. To overcome these limitations, this research project is pursuing a fundamentally different strategy by focusing on amorphous, glassy ceramic solid electrolytes that naturally avoid grain boundaries, conform well to battery components, and offer a wider range of potential compositions compared to their crystalline counterparts. This project is establishing new scientific principles guiding the design of amorphous electrolytes beyond conventional crystalline systems, by uncovering how tiny atomic vibrations in these disordered solids create favorable conditions for rapid ion motion. Researchers at the University of South Carolina, Vanderbilt University, Florida State University, and the National High Magnetic Field Laboratory are joining forces and leveraging machine learning and artificial intelligence (AI) to accelerate materials discovery by using advanced computer simulations to screen tens of thousands of candidate amorphous materials and identify the most promising ones for validation and verification with experimental synthesis and characterization. This project is advancing the national interest by accelerating the development of safer, higher-performance energy storage technologies critical to transportation, grid storage, and national competitiveness in advanced manufacturing. This project is also advancing the mission of NSF by generating fundamental scientific knowledge and training the next generation of materials researchers. Broader impacts include AI for Science summer camps for high school students, new AI and machine learning course content for undergraduate and graduate students, summer internships for undergraduate students, open-access datasets and software, and workshops to increase participation in modern materials research.

TECHNICAL SUMMARY

This collaborative research project is increasing our understanding of ion transport in amorphous superionic conductors, a class of disordered solid electrolytes that remain largely underexplored compared with the well-studied crystalline materials that dominate the existing literature. Unlike crystalline phases, amorphous conductors lack long-range atomic order, eliminating grain boundaries and conferring isotropic ion conduction, superior interfacial compatibility, and broad compositional tunability. However, the mechanisms governing fast ion transport in these disordered solids remain poorly understood. The central hypothesis of the research project is that soft, low-frequency vibrational modes of the host sublattice reduce ion migration barriers through a mobile ion-host sublattice coupling mechanism distinct from the defect-hopping frameworks established for crystals. To test this hypothesis, this project is integrating lattice dynamics theory, high-throughput atomistic simulations using universal machine learning interatomic potentials (uMLPs), active learning based potential improvement for out-of-equilibrium and amorphous configurations, vibrational feature embedded machine learning models, and generative inverse design algorithms. Experimental validation is employing solid-state nuclear magnetic resonance spectroscopy, relaxometry, diffusometry, pair distribution function analysis, Raman and infrared spectroscopy, and electrochemical impedance measurements. This project is screening approximately 20,000 amorphous lithium- and sodium-containing candidate structures and performing inverse design of up to 10,000 additional hypothetical compositions, targeting ionic conductivities exceeding 10 mS/cm at room temperature. Project outcomes include validated structure-dynamics-transport design rules, interpretable machine learning models, high-fidelity uMLPs, open datasets, and publicly released software. Broader impacts include graduate and undergraduate training, AI for Science outreach for high school students, integration of machine learning into materials science curricula, and community-building through workshops and the new Gordon Research Conference series on AI for Materials, Energy, and Chemical Sciences. This work is advancing the NSF mission by generating foundational scientific knowledge while enabling safer, higher-performance energy storage materials for solid-state battery technologies.